Improving Requirements Completeness through Inquiry-Based Goal Refinement

Requirements completeness is the extent to which an application meets user needs. Many applications fail to meet user needs because their requirements incompletely specify what should happen in non-normative situations. Such applications constrain users' actions, so that "workarounds" must be invented. This project is to develop and evaluate novel methods for improving and predicting the completeness of requirements with an emphasis on interactive applications for individual users and small groups. It is assumed that requirements can be derived from user and enterprise goals, and so completeness is defined as the fit between a feature set and the goals and goal-thwarting obstacles that arise in the use context. There are two research challenges: (i) development of methods for analyzing the use of context to uncover goals and obstacles, and (ii) development of methods for deriving requirements from goals and obstacles. Approaches are to be developed for performing these transformations: identifying goals, decomposing goals into subgoals,clarifying goal dependencies, transforming goals into operations, establishing the boundary between application and environment, allocating operations to application and users, identifying obstacles, inventing scenarios for analysis of obstacles, and adding operations or goals to deal with obstacles. The project also seeks to extend and specialize for goal refinement the Inquiry-Based Requirements Analysis process (in which requirements derivation intertwines the expression of models, discussion of their content, and transformation). Work in design rationale is applicable to guiding recurring patterns of goal refinement. Candidate feature sets can be compared by exploring scenarios that are derived systematically from the goal structure: Scenarios are generated using a story grammar, with each significant episode representing a goal or an obstacle. Scenario generation heuristics lead to greater goal/obstacle coverage, and therefore greater requirements completeness without unnecessary redundancy. Development and evaluation of the goal refinement strategy are proceeding simultaneously. The number and quality of additional requirements that are identified as a result of applying the strategy to realistic case studies will be measured. Industrial case studies are carried out in parallel with industrial funding. ***